A Realistic and Viable Methodology for Reliability Analysis of Multi-Area Interconnected Power Systems

This research deals with the problem of reliability analysis of interconnected multi-area generator power system. The analysis methodology includes both operating considerations and interconnection constraints. While current methodology exists they are not computationally viable nor can they deal with issues of jointly owned units and emergency operation. The research is aimed at the solution of several specific problems which, if successful, will address these important topics.